SGER: Exploiting Motion in Wireless Networks

This project focuses on the cross-layer design of wireless systems, at
the network protocol, data link, and physical link layers. Mobility,
which has traditionally been viewed as an impediment, can be utilized to
improve the use of wireless spectrum. Significant gains in performance
can be achieved by adding structure to transmitted signals and exploiting
the different Doppler shifts of nodes in multi-carrier code-division
multiple-access systems. Feedback among the lower three protocol layers
offers the opportunity to utilize the frequency shifts that result from
the motion of mobile wireless users, thereby alleviating effects of
interference and increasing effective utilization.

Intellectual Merit.
This project introduces a novel way to exploit motion as an additional
parameter in wireless systems. By utilizing frequency subbands as
in OFDM and adding sufficient structure to transmitted signals for
processing, Doppler frequency shifts can be used to reduce the effects of
interference. Initial work by the investigators suggests the processing
is feasible. The use of motion requires that the physical, data link,
and network layer protocols be designed in an integrated fashion, and
assumes that computing and location-awareness capabilities will continue
to improve. The use of timing relationships between received signals
for interference excision, which also requires cross-layer information,
is also an increasingly feasible approach.

Broader Impacts.
This project initiates research into utilization of motion as a
possibly beneficial factor in the optimization of wireless spectrum.
The potential benefits of exploiting motion, instead of compensating for
it, are very significant. This is analogous to the MIMO techniques that
have gained such prominence in recent years, in that factors that were
previously believed to be detrimental to performance are transformed
into positives. Exploiting motion requires a cross-layer approach, as
information on movement needs to be passed to lower layers to enhance
processing at those layers. This research will help to understand the
benefits of integrated design across layers. Further, this work will
support graduate education into cross-layer techniques through the
student positions included in the project plan.